The Fabric of the Cosmos -- A Planning Grant

WGBH Educational Foundation is requesting a planning grant to support the development of "The Fabric of the Cosmos," a four-hour NOVA series to be broadcast in the fall of 2009, and an accompanying Web site educational outreach campaign, and project evaluations. Based on the book of the same name, "The Fabric of the Cosmos" will build on the collaboration that resulted in the acclaimed NOVA miniseries "The Elegant Universe," leveraging author and physicist's Brian Greene's ability to get people excited about physics. The goals of the projects are to: 1) enhance public awareness and appreciation of the ongoing quest to understand the fundamental laws of nature, through the evolution of two key concepts: space and time; 2) find innovative ways of using television, the Web and other public forums to bring exciting ideas in science to people who are unlikely to encounter them elsewhere; 3) forge effective collaborative partnerships with the physics community to maximize the educational impact of the project; and 4) encourage individuals to explore scientific concepts and remain engaged with developments in science throughout their lives. The proposed planning phase will include planning meetings with partner organizations, including the American Physical Society, work with project advisors, and writing a detailed treatment for one hour. Multimedia Research will conduct third-party evaluation of the treatment during the planning phase, which will inform the development of the entire series as well as the Web and outreach activities.